Track 1, GK-12 Partnership for Exploring the Environment on the U.S.-Mexico Border

This proposal describes a Track 1 GK-12 project developed by the University of Texas El Paso and the El Paso Independent School District (EPISD). The goal of the program is to transform the cognitive level of learning in middle school science classrooms, enhance the professional preparation of ten graduate Fellows each year, and engage student interest in science and engineering careers. The project will draw on a number of established environmental science curricula as a basis for teaching science modules that are aligned with the EPISD middle school curriculum guides, the Texas science standards, and the National Science Education Standards for grades 6-8. Fellows will also create new learning modules designed to elucidate environmental problems and scientific solutions relevant to the local border region between the U.S. and Mexico.